Center for Computer Visualization of Microscope Image Data

This award provides funds to a group of investigators for the development of a new generation of quantitative fluorescence microscopy/imaging workstations. The techniques required for the project come from fluorescence microscopy, image analysis, computer science, and computer animation. One of the workstations to be developed will be useful in fluorescence spectroscopy of living cells, the other in immunofluorescence studies and in the use of fluorescent probes for in situ nucleic hybridization. In recent years, the application of video recording and computer based image analysis techniques has begun a revolution in the design and use of light microscopes for the examination of both living and fixed cells. Continued progress in these developments is dependent on knowledge in a number of different disciplines. Carnegie Mellon has assembled an outstanding group of investigators and technical staff in its Center for Fluorescence Research in Biomedical Sciences; they will bring the necessary level of skill and diversity to this project.